ITR Medium Award: Computational Complexity Theory 2003

This proposal represents a combination of ambitious
research and educational objectives, described below.

The research we propose is on the fundamental problems of
computational complexity theory, with special focus on the cross
interactions between them. In particular, we will concentrate on
the following three areas.

The power of randomness in computation. This includes
pseudorandomness, derandomization of probabilistic algorithms,
explicit constructions of random-like objects such as expanders and
extractors, and their applications in data structures,
algorithms, networks, codes and more.

The complexity of proofs and search for proofs.
This includes understanding the power
and limitations of natural logical, algebraic and combinatorial proof
systems. It also includes relating these to understanding natural
search heuristics for optimization problems, to automated theorem
proving, and to the limitations of
natural attacks on the P vs. NP problem.

The power and limitations of various computational models.
This includes Boolean and arithmetic circuits, quantum computations,
branching programs and (classical and quantum) communication complexity.

The educational agenda of the IAS in general, and of the Theoretical
Computer Science program in the School of Mathematics in particular,
is turning the
brightest fresh PhDs of today into scientific leaders of tomorrow.
This is facilitated by
an extensive program of permanent, long and short term presence of top
leaders in the field at the school, together with several
extensive and diverse seminar
series, in a highly interactive environment with no duties except
pursuing research.

We note that our program at the IAS (partly with NSF support)
has already a proven track record of excellence in both objectives.